Continuous Flow Strategies for in Vitro RNA Synthesis

The overall goal of this research is to develop continuous reactor strategies which overcome the inherent limitations of Ribonucleic Acid (RNA) transcription in batch reactors so that efficient production of oligoribonucleotides in useful quantities (gram scale or greater) can be made possible. Synthesis of RNA molecules can be carried out using an RNA polymerase and synthetic or plasmid Deoxyribonucleic Acid (DNA) templates. Because of their expense, this requires that both the polymerase and the DNA template be retained in the bioreactor, and that the unreacted nucleoside triphosphate precursors be recycled. Exploratory studies are to be carried out on the activity of the transcription reaction when the DNA template and the RNA polymerase are immobilized (either separately or together) on microspheres with reactive surface groups. Feasibility studies will also be undertaken on the use of ultrafiltration membranes for separating the RNA product transcripts from the reaction mixture.